Dissertation Research: Impacts of Vegetation and Perturbation on the Diversity of Soil Basidiomycetes

9801366 Paul The richest species diversity and largest total biomass of all soil microbiota are realized by soil fungi. One subgroup, the basidiomycetes, produce enzymes involved in the degradation of lignin and humics and are responsible for the majority of the degradation of lignocellulose plant residues and soil organic matter. However, very little is known about their phylogenetic diversity and how this diversity affects ecosystem function. The recent availability of molecular techniques makes it possible to study soil basidiomycete diversity. The research will investigate species diversity of basidiomycetes inhabiting a range of treatments at the Kellogg Biological Station LTER site including tilled, non-tilled, fertilized, and unfertilized agronomic and nearby native sites. This will involve the isolation of soil basidiomycetes and PCR amplification of informative rDNA with subsequent phylogenetic analysis. These analyses will allow the investigators to identify the phylogenetic diversity of non-culturable basidiomycetes, as well as test several hypotheses regarding the effect of environmental variables on species diversity in this agronomically important group of soil-inhabiting fungi.